Doctoral Dissertation Research in Sociology

This research will examine the understudied area of rural to rural migration in a developing society. It will address the problem of peasant migration into protected forests by investigating two related questions. First, since the development and transformation of peasant classes is one of the most central social dynamics in Thai peasant life, what is the relationship between this development of peasant classes and the movement of farmers out of the fertile core agricultural areas into marginal areas, particularly national forests, where the land is not as productive? Secondly, how has Thai state policy shaped this process of class formation and migration, specifically those state policies concerned with land tenure? By understanding the social and economic sources of migration at both a micro- and macro-level this research could then be applied, in Thailand and elsewhere, to help develop state and local policies that would take into account the often conflicting needs of the individual farmer and the needs of the country as a whole.